Improved Self Lubricating Vane

Due to their proven technology, reciprocating-type compressors dominate the compressed air machinery market. The rotary vane concept offers potential advantages over the reciprocating type. However, key technology advances are necessary to make the rotary vane design competitive with the reciprocating design. Foremost among these is the solution of the vane wear problem. This project addresses this issue and researches vane material, vane tip lubrication, and vane tip geometry. These results will be incorporated into a prototype compressor design which will be tested and compared with analytical models. Improvements will be made when indicated and a manufacturing prototype will be developed.